Minority Postdoctoral Research Fellowship

This applicant proposes to study the receptor for Neurite- Extension-Factor/S100B, a glial protein which stimulates neuronal differentiation. Specifically, he hopes to identify, purify, characterize and perhaps clone the receptor for this growth factor. If progress permits, the applicant also hopes to work on the signal transduction mechanism by which the growth factor exerts its effect. This work is planned to take place int he laboratory of Dr. Daniel Marshak at the Cold Spring Harbor laboratory.